CAREER: Understanding the Inner Mechanism of Transformer Neural Operators

Transformers are the ubiquitous backbone neural network architecture of all modern artificial intelligence (AI) systems used in Computer Vision, Language Modeling, and many scientific disciplines. Despite the revolution brought by the rapid evolution of Transformers, fundamental questions about their inner mathematical mechanisms remain unanswered. Their black-box nature makes their internal decision-making process difficult to explain. The project aims to create new mathematical machinery to improve the interpretability of widely used Transformer-based deep learning systems, contributing to community initiatives to build safer AI protocols by making black-box models more interpretable. In the meantime, the project will explore the instance-dependent signal processing featured in Transformers to help people with disabling hearing loss, such as those who wear Cochlear Implants or Receiver-in-the-Ear Hearing Aids, better appreciate music. The investigator will also share with the community the experience of renovating how scientific computing classes are assessed, contributing to the community effort to set the standard for the use of generative AI tools in training the next generation of computational mathematicians.

The scaled dot-product attention mechanism, often considered the heart and soul of Transformers, is widely viewed by the research community as crucial for Transformers' scalable representational power. Attention can be written as an instance-dependent, nonlinear kernel integral that aggregates latent representations from the hidden layers of Transformers. Inspired by the practices and theories used to approximate solutions to Partial Differential Equations (PDEs), the investigator aims to study how these latent representations are formed and propagated through hidden layers, and to devise new tools to measure their representational capacity. The investigator will analyze the approximation properties of Transformers as neural operators, parameterized as function-to-function maps between infinite-dimensional Banach spaces. This project will also curate various PDE-based datasets to help explain the theoretical findings on Transformers' representation capacity.